Integrating Algorithm Visualization into Computer Science Education

Computer Science (31)
Through a collaboration of Grand Valley State University, Alma College, and the University of Wisconsin/Oshkosh, this project explores the use of the algorithm visualization (AV) tool JHAVE on student understanding of computer algorithms. We are refining a suite of existing AV resources, each of which consists of a visualization, a text description of the algorithm, and questions that are presented to the students as they interactively explore the algorithm. We are conducting usability studies of the resources on all campuses in order to ensure portability of our results.

We are focusing on evaluation of the results of these resources using student surveys, faculty surveys and examinations which will allow for cross-institution comparisons. We anticipate using a working group format to dissemination and enhance our results.